Geometry and Physics

Proposal DMS-0305505

Title: "Geometry and Physics"

ABSTRACT

There are three individual researchers supported on this grant. Professor
Freed and various coauthors study first twisted K-theory and loop groups,
secondly differential K-theory and geometric invariants of Dirac operators,
and finally anomalies in M-theory and string theory. Professor Hausel
researches new mathematics in quaternionic geometry which corresponds to
known mathematics in complex geometry, such as the moduli space of Higgs
bundles, square integrable harmonic forms, integration on circle compact
manifolds and face vectors of hyperplane arrangements. Professor Uhlenbeck
has two projects on hyperbolic equations, one of finding fundamental
solutions of covariant-derivative wave operators and one studying wave map
blow-up in two space dimensions. She also studies Virasoro actions in TCFT.

The three supported researchers are part of a large geometry group whose
research projects span many topics in geometry which originate in high energy
theoretical physics or engineering physics. In mathematics proper the work
of the group is not limited to geometric analysis, but also involves
algebraic geometry, geometric topology, algebraic topology, representation
theory, harmonic analysis, and mathematical physics. Essential to the group
research are collaborations among mathematicians with diverse backgrounds in
mathematics, physics and biology.